Research and Resource Center For Electron Microscopy

This Research Improvement in Minority Institutions (RIMI) project will establish a resource center for electron microscopy. The center will serve several local colleges and universities in the Atlanta area including Morehouse College, Spelman College, Morris Brown College, the Morehouse School of Medicine, and Clark-Atlanta University. These institutions need adequate professional technical staff support to enhance the research infrastructure and maintain the existing microscopy facilities. Special activities in the center will include summer and academic year workshops on advanced electron microcopy and a research colloquium series. This project will further enhance the posture of meritorious research in the Clark-Atlanta University Center and will strengthen the research productivity of promising investigators. Students will benefit significantly by increased exposure to research. The principal investigators are well trained and have published in refereed journals.